MRI: Track 1: Development of a Computational System for Agricultural Structural Modeling and Analysis

This project will build a shared research instrument that helps plant scientists turn field images into useful measurements of plant structure. Researchers can now collect large amounts of crop imagery from drones, ground sensors, and robotic platforms, but it is still difficult to turn those images into detailed measurements of how plants grow, branch, bend, and change over time. This instrument will help close that gap by creating 3D models of field plots and giving researchers software tools to view those models, choose regions of interest, make measurements, annotate plant structures, and export trait data. The project will focus on the core capabilities needed for a practical and sustainable instrument: field-scale data ingest, data validation, 3D reconstruction and modeling, user-guided selection of high-resolution regions, generation of selected 3D products, and extraction of plant structural measurements. The result will be a shared platform for making better use of field imagery that is already being collected but remains difficult to analyze at scale.

From a technical perspective, this project will create an integrated computational instrument for transforming large collections of field images into 3D representations and quantitative measurements of plant structure. The instrument will combine high-performance computing, modern 3D reconstruction methods, data-management workflows, and user-facing software into a system that plant scientists can use without needing to manage the underlying computing infrastructure themselves. Its key capability is to connect the full workflow: checking that field data are usable, processing imagery into spatially organized 3D products, allowing researchers to focus computation on scientifically important regions, and linking measurements back to field locations, time points, and plant traits. By making these capabilities available as a shared instrument, the project will support research that is currently difficult to carry out at field scale, including studies of plant architecture, growth over time, and the relationship between plant form, environment, and biological performance. Plants that can better withstand heat, drought, disease, and changing growing conditions will be essential for future food systems, restoration efforts, and sustainable agriculture. Progress toward those goals depends on being able to observe how plants actually grow in real fields, across space and time, and under the complex conditions they experience outside the greenhouse. This instrument will enable researchers to convert large field-imagery datasets into 3D models and structural measurements that can support studies of crop improvement, ecosystem restoration, bioenergy, plant-environment interactions, and climate resilience. By making these capabilities available through a shared, usable computational system, the project will expand what plant scientists can measure from field data and create a foundation for future research that connects plant form, environmental conditions, and biological performance.